Women in Science: Recruitment and Retention

This project investigates causes of women's under-represen- tation in science. Data from five large surveys are analyzed to test hypotheses concerning effects of early socialization, mathematical achievement, family duties, discrimination, and other factors. Results will provide a more comprehensive view than previously available of the pathways women and men take to scientific careers, and the special obstacles which affect women's career choices.